Conference: Groups and Computation, March 24 - 29, 2003, The Ohio State University

This award funds a conference in Groups and Computation at the
Ohio State University, March 24-28, 2003. The conference focuses
on the interplay between theory and practice in computing with
groups, algorithms for computation being at the heart of the
conference. The primary conference goal is to provide a forum
for computational group theorists, both mathematicians and
computer scientists, to meet with colleagues in order to learn
of recent research developments in this area, to learn of and
work on new open problems, to further existing large projects in
this area, and to develop software for large computer systems
that handle group computations. A second goal is to give graduate
students and recent Ph.D's an opportunity to learn of new work and
of open problems in the area.

Group theory is often described as the algebraic theory of
symmetry in the abstract. Group theory arises and is used in a
wide variety of other fields, including solid state physics,
chemistry (crystallography), coding theory and cryptography.
Understanding the structure of groups is the major task of group
theory. The subject of the conference is the interaction between
this mathematical discipline and algorithmic questions used in
extensive computer computations with these fundamental algebraic
objects.